Pressure/Temperature Effects on Extremely Thermophilic Archaebacteria

The objectives of this research are to study the pressure/temperature effects on extremely thermophilic archaebacteria and to understand the unique metabolic processes and mechanisms of adaptation to extreme environments of these archaebacteria. The work addresses several of the engineering problems related to growth and function of extremely thermophilic bacteria for biotechnological applications. In particular, focus will be placed on the effects of both elevated pressure and temperature on these microorganisms.